ITR: The Open Source Quality Project

This project investigates techniques and tools for assuring software
quality: finding and removing defects in software systems, as well as
improving current methodology for designing high-quality software
systems at the outset. The project consists of both experimental
and theoretical components.

The experimental effort is focused on designing and building tools to
improve the quality of Open Source software. Open Source is
attractive as a research vehicle in software quality because of the
critical role it plays in the nation's economy and precisely because
it has the unique feature that it is a real-world system that is
completely open and available for study. Because of the Open Source
tradition of incorporating useful new techniques and tools into the
Open Source environment, there is also an opportunity for direct and
widespread impact.

The foundational work in this project combines expertise in the three
branches of the discipline of the analysis of software: formal
verification and theorem proving, model checking, and large-scale
software analysis. These three areas have developed rapidly in recent years, seeing both significant theoretical and practical advances. A central thesis of this project is that significant further advances are possible by bringing together these areas to work on a common set of problems.